A CEREUS (Consortium Exchanging Research Experiences for Undergraduate Students) Approach to Assessing Ecological Responses in the Southern Appalachians to Environmental Change

Phenology, the study of seasonal biological events, tracks the effects of both year to year climate variability and long-term environmental change on both local and global ecology. It has considerable potential for serving as a base for research studies by undergraduate classes and developing cross-campus studies. Several recent studies, including the President's Council of Advisors on Science and Technology (2014), and Vision and Change in Undergraduate Biology Education (a 2011 document representing the views of over 500 biology faculty and administrators) cite the importance of undergraduate research for retaining science majors and helping students better understand key concepts and develop crucial competencies. Four institutions, the University of North Carolina at Asheville, Appalachian State University, East Tennessee State University, and Warren Wilson College, are combining forces to create common gardens and to develop modules that can guide students' research studies to address potential impacts of global change at multiple levels of the biological hierarchy, from genes to ecosystems. The cooperating institutions are unique in character, diverse in their student bodies, and located in varying climate zones. The project will contribute to our knowledge about ecological issues and will expand the ways in which institutions can combine forces to increase the STEM knowledge and competencies of their students. Environmental change issues to be investigated include monitoring effects of invasive exotic removal techniques on herbs, shrubs, vines, and trees within the areas studied (studies for lower division courses), and exploring questions about the spread of potentially invasive exotic plants, using a combination of GIS (Global Information Systems) mapping, herbarium collections, and online databases (upper division courses).

The collaborating institutions will create and beta-test modules, identify and mitigate barriers to successful implementation of curricular changes, and disseminate curricular changes. The modules will have a direct impact on the learning of over 2000 undergraduates per year, including non-STEM majors. They will be developed and partially administered by undergraduate and graduate research students, and will be instrumental in developing pedagogical expertise for faculty members. The ability of modules to impart botanical knowledge while encouraging higher-order cognitive processes, advancing quantitative literacy, teaching analytical techniques, honing scientific communication skills, cultivating positive student attitudes towards plants and STEM, and improving persistence and graduation in STEM majors will be assessed using a mixed method approach (quantitative and qualitative data collection). Results will begin to document the effects of global change on an understudied but important bioregion while developing a future workforce with solid STEM training.

This project is funded jointly by the Directorate for Biological Sciences, Division of Biological Infrastructure and the Directorate for Education and Human Resources, Division of Undergraduate Education, in support of efforts to address the challenges posed in Vision and Change in Undergraduate Education: A Call to Action http://visionandchange.org/finalreport/.